Calibration stability of two new oxygen sensors for CTD's

The University of Hawaii will continue a project to adapt and test two new types of oxygen sensors for oceanographic purpose: an amperiometric membrane YSI sensor and a carbon-fiber micro-hole potentiostatic solid-state oxygen sensor. Unlike existing polarographic oxygen sensors, potentiostatic sensors have no membrane and therefore have comparatively fast response to changes in oxygens levels. This work will focus on the electro-chemistry of both the membrane and membrane-less oxygen sensors. Temperature and pressure are known to affect oxygen determinations, but it is unclear whether pressure affects the chemistry at the surface of the electrode, or the oxygen permeability through the membrane. A series of experiments will be run in a pressure chamber measuring the response of the sensors under different oxygen concentrations, temperatures, and pressures up to 100 atm. Solid-state potentiostatic oxygen sensors should provide greatly improved capabilities over present methods for making scientifically important dissolved oxygen measurements in the oceans. Developing a more reliable and more accurate dissolved oxygen sensor has been recognized as a high priority of the oceanographic research community.